NMR Investigations of the Static and Dynamic Properties of Spin Density Waves

9319304 Clark Technical abstract: The main issues addressed by this project are the static and dynamic properties of spin density waves (SDW) in anisotropic conductors. Nuclear magnetic resonance (NMR) spin echoes will be used as a microscopic probe, in conjunction with electrical transport. Most of the work will be on the Bechgaard salts (TMTSF)2X (X=PF6, ClO4, AsF6, etc.). Both "ordinary" and field induced spin density waves with varying degrees of pinning will be investigated. The physical quantities to be obtained from this work include the temperature dependence of the order parameter, the displacement of the condensate in response to an electrical field below threshold, its sliding velocity above threshold, the spatial and temporal distribution of the sliding velocity above threshold, SDW memory and repinning effects, and the temperature and frequency dependence of SDW phason fluctuations. Non-technical abstract: The purpose of this project is to investigate an unusual property of several organic materials that conduct electricity. At low temperatures the conducting electrons form a semiconducting state with an undulating magnetic structure called a spin density wave (SDW). This SDW is usually pinned to the underlying material imperfections. When, however, a small electric field above a certain threshold is applied to the material, the SDW slides. Under these conditions, it becomes a new type of electrical current. The measurements to be made are electrical conduction and nuclear magnetic resonance spin echo studies of the basic properties of these SDWs. They include the size of the undulating magnetic field, how its size varies with temperature, its thermal vibrations, how it moves when driven by an electric field, and the complex way it becomes pinned again when the electric field is removed. p:\wickman\abstract\clark.doc